RAPID: DRL AI: Non-digital Hands-on AI Learning Resources for Middle-School Students

Young learners need opportunities to build awareness surrounding AI. To rapidly expand access to AI education, K-12 educators need activities that (a) are low-cost, (b) do not require specialized technology, (c) can be led with little prior knowledge of AI and used in settings with time constraints and competing curricular needs, and (d) have clear learning objectives and tie-ins across disciplines. “Unplugged” activities that are playful, hands-on learning experiences that foster learning about AI without programming can address these constraints. This project will create a public repository of unplugged activities for fostering middle school aged youth’s age-appropriate understanding of AI, with the aim of broadening access to AI education. This proposal was received in response to the Dear Colleague Letter (DCL): Rapidly Accelerating Research on Artiﬁcial Intelligence in K-12 Education in Formal and Informal Settings (NSF 23-097) and funded by the Innovative Technology Experiences for Students and Teachers (ITEST) program, which supports projects that build understandings of practices, program elements, contexts and processes contributing to increasing students' knowledge and interest in science, technology, engineering, and mathematics (STEM) and information and communication technology (ICT) careers.

The project team will explore three key research questions: 1) how can we design a set of unplugged activities that empower young adolescent learners to learn about AI through the lens of their own bodies and identities?; 2) How do adolescents and educators perceive unplugged AI literacy activities?; and 3) Are unplugged activities eﬀective at fostering middle-school learners’ AI literacy, especially as it relates to AI’s impact on their lives? Researchers will engage in iterative design-based research to develop up to 15 unplugged activities that span a variety of AI literacy learning objectives and relevant cross-disciplinary connections. Research design includes interviews with 20 to 30 adults including teachers, parents, and after-school group leaders as well as 20-30 teens who will engage with the activities and oﬀer feedback. Teens will additionally complete a retrospective post-test to assess learning. This project will contribute an open-source repository of AI literacy activities that will be widely disseminated amongst parents and educators. In addition, this project will contribute an evidence-based understanding of whether and how unplugged resources can support young adolescents’ learning about AI, including design recommendations that can be used to guide future interventions. This work will result in new theories about the ways in which adolescents learn about AI through their bodies and the lens of their personal identities.